Implementing the Mathematical Practice Standards: Enhancing Teachers' Ability to Support the Common Core State Standards

The Implementing Mathematical Practices Standards (IMPS) is a four-year project that is producing materials designed to help teachers see how the mathematical practices described in the Common Core State Standards for mathematics can be implemented in mathematics instruction. The goal of the improved instruction is to help students adopt and value these critical mathematical practices. Researchers at the Education Development Center are developing videos and print materials that exemplify the mathematical practices and are working with teachers in grades 5-10 to help them use the materials effectively. The research questions of the project are focused on what features of the materials are most helpful to teachers and what professional development characteristics facilitate implementation of the mathematics practices in classroom instruction. The external evaluation of the project is being conducted by evaluators at TERC who are looking the process of developing materials and how the materials are used.

The materials will include professionally-produced videos exemplifying a particular mathematical practice being implemented in a classroom as well as printed dialogues that are designed to help teachers understand the practice and why it is critical for students to acquire that mathematical practice. The exemplars of mathematical practices are being developed based on pilot work and systematic advice from mathematicians, mathematics educators and mathematics teachers in grades 5-10. The design process is iterative and materials are refined based on feedback that is received. Facilitators are being prepared to conduct professional development and materials are being tested by more than 150 teachers in a variety of school districts.

Professional groups such as NCTM and NCSM have called for materials that exemplify the CCSS mathematical practices. They have argued that teachers need to understand how these standards can be achieved in classrooms. IMPS systematic effort to design materials that exemplify the standards and to test not only the materials but also the professional development associated with the materials is responding to the national need. The videos and dialogues will be available through broad dissemination.